Transport Processes in Dense Multiphase Systems

A combination of analytical and computational techniques for the efficient numerical simulation of multiphase systems, including acoustic and electrical fields, will be developed. Several innovations are proposed to include the lubrication force, polidispersivity in the size of bubbles or particles, multiparticle interactions and wave propagation. The work has scientific relevance in multiphase flow and processing, and may lead to an efficient use of high performance computers.